Workshop on Collaborative Opportunities for Libraries in Advanced Networking

This recommendation memo provides support and justification for funding of IIS-0211679. The proposal requests support for convening a workshop to explore possibilities for collaborative research and demonstration projects involving libraries as access and service providers for Internet2 applications. Workshop participants will include experts in advanced networking, librarians from the academic, and public sectors and international experts in the area. The goal will be to collect perspectives, examine feasible alternatives and produce an action plan for deploying advanced networking and digital services through libraries and other community access providers.